Support for Publication of AIBS Symposium on "Systematics and Evolution of the Monocotyledons"

Monocotyledons are one of the two main groups of flowering plants. A special symposium entitled "Systematics and Evolution of the Monocotyledons" was held at the 1986 meeting of the American Institute of Biological Sciences. Dr. George Rogers has created a Proceedings Volume from the seven research articles produced for this symposium. Dr. Rogers proposes to publish these as a volume in the Annals of the Missouri Botanical Gardens. The proceedings volume will bring together several of the most important contributions to our understanding of this major plant group. The Annals is a widely distributed and highly respected journal, and publication in this series will ensure wide impact. Students and researchers will turn to this volume as a milestone in botanical research.